Advanced Electro-Optics Laboratory

This project introduces undergraduates to some advanced topics in fiber optics. The fiber optics laboratory supported by this grant builds on an already existing lab that was funded by industry. The enhanced lab permits students to study modern optical fibers and connection techniques. A new course, supported by this lab, permits students to investigate optical signal processing techniques and components. The primary equipment that supports this lab includes: laser diode drivers, HP pulse and function generators, fiber optic receivers and power supplies, electro-optic modulator with driver, and a collection of lasers and equipment accessories. This award is being matched by an equal sum from the grantee.